Supporting Elementary Teacher Learning for Effective School-Based Citizen Science (TL4CS)

Citizen science involves individuals, who are not professional scientists, in authentic scientific research, typically in collaboration with professional scientists. When implemented well in elementary schools, citizen science projects immerse students in science content and engage them with scientific practices. These projects can also create opportunities for students to connect with their local natural surroundings, which is needed, as some research has suggested that children are becoming increasingly detached from nature. The classroom teacher plays a critical role in ensuring that school-based citizen science projects are implemented in a way that maximizes the benefits. However, these projects typically do not include substantial guidance for teachers who want to implement the projects for instructional purposes. This project will develop two forms of support for teachers: (1) guidance embedded in citizen science project materials and (2) teacher professional development. It will develop materials and professional development experiences to support teacher learning for 80 5th grade teachers impacting students in 40 diverse elementary schools.

The overarching goal of this project is to generate knowledge about teacher learning that enables elementary school citizen science to support students’ engagement with authentic science content and practices through data collection and sense making. Specifically, the study is designed to address the following research questions: (1) What kinds of support foster teacher learning for enacting effective school-based citizen science? (2) How do supports for teacher learning shape the way teachers enact school-based citizen science? and (3) What is the potential of school-based citizen science for positively influencing student learning and student attitudes toward nature and science? Data collected during project implementation will include teacher surveys, student surveys and assessments, and case study protocols.

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering, and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models, and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.